Quaternionic geometry and elliptic genus

Abstract

Award: DMS-0405281
Principal Investigator: Haydee Herrera

This research proposal focuses on the study of the topology of
manifolds with finite second homotopy group and the Differential
Geometry of quaternionic- Kaehler manifolds. The emphasis of the
project is on the determination of analytical and topological
invariants of the manifolds, such as the signature, A-roof-genus
and elliptic genera. Following the evidence from our previous
research, we propose to apply the aforementioned theory to
concrete Geometric Analysis/Differential Geometry
problems. Furthermore, this study has applications to Algebraic
Geometry (via twistor transform) and to Theoretical Physics,
since the manifolds under consideration are of interest in sigma
models and in String Theory.

My research interests are concerned with the study of certain
spaces of large dimension, called quaternion-Kaehler
manifolds. In the quest for understanding the universe,
physicists have developed many and very sophisticated models,
such as Relativity Theory and more recently String Theory, that
help explain and predict phenomena observed in the Universe. One
of the leading physicists of our times, E. Witten, discovered
that quaternion-Kaehler manifolds appear in the formulation of
certain Quantum Field Theories. My research focuses on finding
the possible shapes and properties of quaternion- Kaehler
manifolds.